Young Scholars Program/Summer Research Participation Program

*** 9552915 Mirand Roswell Park Cancer Institute will initiate an eight-week, summer commuter and residential, Young Scholars project in the biological sciences for 15 students entering grade 12. The program encompasses both research (90%) and didactic (10%) experiences for high ability, high potential students from across the country. The specific objectives of the program are: to expose students to an atmosphere of an active research environment; to develop their interests in research and science as a career; to learn the problem solving skills, habits and attitudes required by scientific investigators; to provide students with an opportunity to interact with college, pre-doctoral, doctoral, and scientific faculty members; to make students aware of academic requirements of a career in science; and to increase students' self-confidence by allowing them to conduct their own research projectq. ***